Dissertation Research: Chloroplast DNA Phylogenetics of Madiinae (Asteraceae)

Dr. Donald Kyhos of the University of California at Davis will supervise graduate student Bruce Baldwin in a study of the evolutionary relationships of the Hawaiian silversword plants and their western U.S. allies, the "tarweed" group of the sunflower family. Emphasis is placed on molecular-level compari- sons of chloroplast DNA (cpDNA) among a large number of species in this group, to detect mutational differences between species and infer their phylogenetic connections. The tarweed group is of great evolutionary interest because it comprises two very isolated elements: the Hawaiian "silversword" alliance of 26 species and the western North American tarweeds. The growth forms and physiology of the Hawaiian species have evolved dramatically, although breeding barriers between even the most divergent species (woody trees and herbaceous rosettes) are weak. In contrast, the continental tarweeds are conservative in structure and form, yet they have developed strong genetic barriers to interbreeding. Study of this contrasting pattern of island versus mainland evolution in plants at the DNA level, the level of the gentic code, offers great promise for resolving several problems. These include resolution of the phylogenetic connections among the species, determination of the pattern of colonization among the Hawaiian taxa and of the role of hybridization in species formation, and measurement of the relative rates of change in DNA and in morphological form.